The USA Mathematical Talent Search (USAMTS)/Rose-Hulman Young Scholars Program

9452713 Bersenyi Rose-Hulman Institute of Technology seeks to initiate a four-week, residential, Young Scholars project in the field of mathematics which will offer science enrichment activities for 50 precollege students entering grades 9, 10, 11, and 12. The program will combine the summer residential project with a nine month correspondence component. The program provides an intensive and focused mathematical experience concentrating on group activities, and on in-depth, methodical studies of selected mathematical areas, including axiomatic set theory and combinatorics.